Travel Support for ISCA '95, June 22-24, 1995, Santa Margherita Ligure, Italy

This is an attendance and travel grant for the 22nd Annual International Symposium on Computer Architecture on June 22-24, 1995 in Santa Margherita Ligure, Italy. It is co-sponsored by the Association for Computing Machinery and the Institute of Electrical and Electronic Engineers. The symposium, through a combination of invited talks, panel sessions, tutorials, workshops and refereed paper presentations, continues to serve the various needs of the computer architecture research community. It is an important conference in the computer architecture area. This grant provides support to help several graduate students attend the symposium.